Stoichiometry and Thermodynamics of Pd Hydroxide Complexes and PGE Bisulfide Complexes

9404622 Wood This project is to do the following: 1) carry out studies of the hydroxide and bisulfide complexes of Pt and Pd from 0 to 90oC; 2) build and test a hydrothermal apparatus required for the study of PGE mineral solubility at temperatures from 300o to 600oC; 3) carry out preliminary experiments on the simultaneous solubility of all six PGE metals in chloride solutions from 300o to 600oC. The thermodynamic data determined in this study are crucial to the direct modelling of PGE transport during the formation of low-temperature hydrothermal PGE deposits.